RUI: Structure Mixing in the Mid-Shell Tellurium Nuclei

9626846 Vanhoy This research is a three-year program to study the structure of low angular momentum states in tellurium nuclei by inelastic neutron scattering followed by gamma ray emission. The research involves undergraduate students from the U.S. Naval Academy and utilizes facilities of the University of Kentucky Van de Graaff laboratory in addition to those of the Naval Academy, and is a collaboration with students and scientists from the University of Dallas as well as the University of Kentucky. ***